The Classroom Ecosystem Explorer (CEE): Developing and Testing a Multimedia Tool to Support Early Grades Instruction in Science

The Classroom Ecosystem Explorer (CEE), a proof of concept project, is designed to assist K-3 teachers in teaching life and physical science for conceptual understanding. CEE integrates videos, stills and voice-over into one multimedia web-based tool. The video presentations are organized to teach practicing or pre-service teachers to analyze complex classroom dynamics and students' preconceptions, scientific understandings or misconceptions. CEE is intended for use in teacher education and professional development programs. The program provides teachers with experiences in understanding details related to the "how" of high quality science teaching. The professional development activities illuminate what happens in planning and in arranging science classrooms to promote student learning. The project will implement a quasi-experimental research design where researchers compare the implementation of three models. This project impacts approximately 30 teachers and an estimated 600 students.